Eye Development in Drosophila

Mobilization of the tom transposable element in Drosophila ananassae results in high incidence of spontaneous mutations. Most of these mutations show dominant eye-specific phenotypes, suggesting a high selectivity in the type of genes that can be mutated by the tom element, or alternatively, a specificity in the mechanism by which this transposable element causes mutant phenotypes. Preliminary results suggest that tom-induced dominant phenotypes result from over-expression of genes located adjacent to the tom insertion site. One of these genes, called Om(1D), has been isolated and found to encode a homeobox containing protein. In addition to 25 different optic morphology (Om) mutants, mobilization of the tom element has allowed the identification of suppressors and enhancers of Om mutations. One of these suppressors, Om(1K)Su, reverses the mutant phenotype caused by insertion of tom in all 25 Om genes. This suggests that the suppressor gene may encode a function that is common to mutations in all Om loci. Dr. Corces hypothesizes that this function may be related to the ability of the tom element to induce over expression of the mutant gene, and therefore the Om(1K)Su gene may encode an eye specific transcription factor that interacts with the tom element. He proposes here to study the mechanisms by which the tom element causes eye specific phenotypes and determine the role in eye development of genes affected by Om mutations. The tissue specific expression of the Om(1D) gene at different developmental stages will be determined and a genetic analyses of the recessive phenotype of the Om(1D) gene will be carried out. The suppressor Om(1K)Su gene will be cloned and characterized as will its pattern of expression. Its protein will be expressed in E. coli and isolated and biochemical assays will be used to determine putative interactions between this protein and the Om(1D) gene and/or the tom element. Finally, the mechanism of mutagenesis by the tom element will be investigated. Sequences of the tom element responsible for its mutagenic effect will be identified by a combination of molecular and genetic approaches.